Modular Algebraic Representation Theory

McNINCH, 9970301

The project will investigate various aspects of the modular
representation theory of groups, with special emphasis on the rational
representations of semisimple algebraic F-groups defined and split
over the prime subfield with p elements. One component of the project
involves consideration of the semisimplicity of representations of FG,
where G is an arbitrary group. Under suitable constraints on a
representation, (e.g. requirements that the dimension not be too large
with respect to p) recent results permit one to deduce
semisimplicity. Along these lines, the project will study the
semisimplicity of certain tensor operations (generalizing the tensor
power, exterior power, and symmetric power) applied to appropriately
constrained semisimple representations, as well as certain "converse
theorems." When H is the finite group of rational points of a
semisimple algebraic group G over a finite field, the project will seek
to obtain vanishing results for cohomology groups of H with
coefficients in irreducible FH-modules whose dimension is suitably
bounded in terms of p; such vanishing results for first cohomology
follow from some known semisimplicity results. The project will
extend some investigations of the author concerning H. H. Andersen's
tilting module filtrations; one aim is to obtain Andersen's sum
formula for all primes p in the setting of "Howe dual pairs."
Analogies between various sum formulae -- the classical result of
Jantzen, the recent work of Andersen, and some recent work of Jantzen
on non-restricted representations of the Lie algebra of G -- will be
considered. Some explicit constructions of irreducible representations
for double covering groups of symmetric groups will be sought; by
analogy to the familiar interplay between the general linear group and
the symmetric group, it is hoped that the simple algebraic Spin group
can be exploited to obtain some insight for the desired constructions.